Main Group Rings, Clusters, and Assemblies

Dr. Alan Cowley, Department of Chemistry, University of Texas at Austin, is supported by the Inorganic, Bioinorganic, and Organometallic Program of the Chemistry Division for studies of main group rings, clusters, and assemblies. Several new unsaturated ring systems featuring the group 13 elements will be prepared, some with potential as candidates for ring opening metathesis polymerization (ROMP). Heteronorbornadienes will be investigated for their potential as thermal or photochemical sources of, for example, intermetallic materials. Assembly of bicyclic ring systems that incorporate group 13 - group 13 bonds into stacked architectures will be investigated for their potentially interesting electrical and/or magnetic properties. Various approaches to anion recognition, including multidentate Lewis acid assemblies that incorporate group 13 or 14 elements, will also be pursued, and new approaches to the formation of cluster and cage-type compounds of the heavier group 13 elements will be developed. New combinations of main group elements (boron, aluminum, gallium, and indium) with carbon ring systems and with one another, will be prepared and investigated. Apart from the intrinsic interest in the structures and bonding descriptions of these rings, these compounds have potential as precursors to new polymeric and intermetallic materials with novel electrical and/or magnetic properties. The larger ring systems are appropriate for the selective and reversible binding of anions, and thus have potential applications in anion transport and homogeneous catalysis